On Some Fully Nonlinear Elliptic Equations

Proposal DMS-0401118
PI: Yanyan Li (Rutgers University)
Title: On some fully nonlinear elliptic equations

The PI proposes to work on some conformally invariant fully nonlinear
equations which arise naturally from conformal geometry. In particular he
proposes to prove a very general fully nonlinear version of the Yamabe
conjecture. The corresponding Liouville type theorem has been established.
The main task is to obtain apriori estimates for solutions.

Partial differential equations arise naturally from physics, geometry,
and many other fields and form a basis for mathematical modeling of
the physical world. The proposed research should enhance the understanding
of fully nonlinear elliptic equations, an important class of equations
in modeling the physical world. The study of conformally invariant equations
has found applications in geometry and topology. Part of the proposed work
concerns important analytical issues for such equations. We expect that further
applications to geometry and topology can be made with conformally invariant
fully nonlinear equations and related ones, and the proposed work should
provide analytical tools for such applications.